SBIR Phase I: Robotic Systems for Network Interrogation of Smart Civil Structures

This Small Business Innovation Research Phase I project is aimed at developing an autonomous robotic structural inspection system capable of remote powering and data collection from a network of embedded sensing nodes, and providing remote data access via the internet. The system will utilize existing microminiature, multichannel , wireless, programmable Addressable Sensing Modules (ASM's) to sample data from a variety of sensors. These inductively powered nodes do not require batteries or interconnecting lead wires, which greatly enhances their overall reliability and reduces their installation cost. Networks of sensing nodes can be embedded, interrogated, and remotely accessed in applications where visual inspection by people is not practical due to: physical space constraints, remote geographic locations, high inspection costs, and high risks involved for those performing the inspections. The sensors can indicate the need for repair, replacement, or reinforcement, which will reduce the risks of catastrophic failures and would be useful after natural disasters, such as earthquakes, hurricanes, tornadoes, and floods. The availability of critical structural health data on the internet would greatly assist highway engineers and scientists, to improve their working database on these structures, which will improve our understanding of the safety of civil structures and their requisite maintenance.

If successful, market potential could be significant, as various task-specific robots can be employed with the systems for remote inspection and internet data delivery from a broad spectrum of structures, such as: bridges, bridge footings, dams, offshore oil rigs, buildings, hazardous waste sites, and nuclear power plants.